Multiscale Computational Methods for Semiclassical Schrodinger Equations

The proposer proposes to develop efficient numerical methods
for several problems in quantum dynamics. Specifically, the following
three topics are selected: Semiclassical methods for quantumscattering,
surface hopping, and Bloch-decomposition based computational
methods for quantum dynamics in periodic lattice. These are challenging
computational issues that involve high frequency waves and
quantum-classical coupling. Mathematical and computational
methods can play important roles to enhance our understanding as well
as our ability to simulate these problems.

These problems arise in solid state physics, semiconductor device
modeling, Bose-Eistein Condensations (BEC), solar energy, and
functional materials such as graphane, thus the developed computational
methods will have a wide range of applications, some of which of
significant national interests. Some of the research results will
provide excellent additions for future graduate courses in applied
mathematics and scientific computing, thus will help to
improve the graduate curriculum in applied mathematics in order to
better train future graduate students in modern applied mathematics.